Model Theory and Analysis

This project concerns the further development of Henson's logic
for structures based on metric spaces and, especially, the
continued application of this theory to problems in functional
analysis and in the geometry of metric spaces. The syntax of
this logic is restricted to the class of positive bounded
formulas and the semantics of the logic uses an approximate
satisfaction relation. Its potential role in analysis and
geometry is parallel to the role of ordinary first order logic in
the more algebraic aspects of mathematics.

During the past 40 years or more, techniques from logic have not
only clarified the foundations of mathematics, but they have
contributed new tools for solving mathematical problems. These
tools have been especially effective in those areas of
mathematics that are close to algebra and number theory. In this
project, C. Ward Henson aims to make those tools from logic
equally effective in the areas of mathematics that are close to
topology, geometry, and analysis.